SGER: Network Support for NSF Plant Genome Program

The long term goal of this Small Grant for Exploratory Research (SGER) project is to provide a web-based resource for sharing information about research funded through the Plant Genome Research Program. This resource will serve several roles. First, it will provide an internal resource for rapid communication of ideas and issues among members of ongoing projects. Second, it will serve as a resource to members of the community seeking information about Plant Genome projects or opportunities for participation. Third, it will serve as site for informing the community about new initiatives and soliciting input on a variety of issues. In summary, this resource will facilitate the interaction between members of Plant Genome projects and broaden the participation of the community in sharing the resources generated by these projects.